Tennessee Constructing Understanding in Physics

9731287
Lee

The Department of Physics and Astronomy at Middle Tennessee State University proposes a 4-year enhancement program for physics teachers. The pedagogical basis for the program is the national project "Constructing Physics Understanding (CPU) in a Computer Supported Learning Environment" developed at San Diego State University with the support of the National Science Foundation. Modules have been developed for Light and Color, Static Electricity and Magnetism, Current Electricity, Motion and Forces, Waves and the the Small Particle Model. A faculty team from Tennessee has attended the sessions in San Diego delivered by Professor F. Goldberg, the PI on the CPU project. This team will work with the 75 physics teachers.

During a 6-week period spanning two summers, with follow up meetings during the academic year, teacher participants will complete 4 modules of the CPU program and practice discovery laboratory activities that complement CPU.